Cambria County: Connections to the Internet

Cambria County Area Community College will use this grant to connect the Hiram G. Andrews Center to the Internet. The Hiram G. Andrews Center is one of the nation's oldest postsecondary trade and technical schools dedicated to the comprehensive rehabilitation of persons with disabilities. Located in rural Pennsylvania it needs the Internet connection to be able to access information resources throughout the state, the nation and the world. The connection will benefit the faculty, staff students of this institution as well as the community in general. The award provides partial support of the project for two years.